Using Computers to Engage Diverse Student Learners in Mathematics

The mathematics department at Rancho Santiago College, a large, urban community college, is building on the success of the department's curricular efforts to further enhance student learning in mathematics. A computer classroom is being used to provide a technologically-integrated curricular approach to all Precalculus, Calculus, and Linear Algebra classes. The particular goals of the effort are to: 1. infuse cooperative team building, active learning and discovery-based learning into mathematics pedagogy to meet needs of students with diverse learning styles; 2. use relevant application-based data and problems to motivate student success and interest in mathematics; 3. incorporate elements of reform calculus that emphasizes the relationship among data, graphs, and functions into precalculus level courses; 4. provide students with computer skills they will use in further studies.